Environmental Chemical Processes Workshop, September 25-27, 1987, Tahoe, Navada

A workshop on Environmental Chemical Processes will be held September 25-27, 1987 in Tahoe, Nevada. The focus of this meeting will be on the chemistry needed to define and solve environmental problems. Condensed phase environmental problems will be provided equal billing with gas phase environmental challenges. The pivotal position of chemistry in basic environmental chemistry research will be the premier concern of the workshop. A report summarizing the findings of the workshop will be a technical reference for scientists examining options to improve and protect the nation's environment and will be a guide for chemists in academia, industry and government to research opportunities that are ripe for investigation in the study of environmental processes. Participants in the workshop will be from academia, industry, and government.